REU Site: Supercomputing Undergraduate Program in Maine (SuperMe)

This award, for a new Research Experience for Undergraduates (REU) site,
builds a Supercomputing Undergraduate Program in Maine (SuperMe). This
new site provides ten-week summer research experiences at the University
of Maine (UMaine) for ten undergraduates each year for three years. With
integrated expertise of ten faculty researchers from both computer
systems and domain applications, SuperMe allows each undergraduate to
conduct meaningful research, such as developing supercomputing techniques
and tools, and solving cutting-edge research problems through parallel
computing and scientific visualization. Besides being actively involved
in research groups, students attend weekly seminars given by faculty
mentors, formally report and present their research experiences and
results, conduct field trips, and interact with ITEST, RET and GK-12
participants.

SuperMe provides scientific exploration ranging from engineering to
sciences with a coherent intellectual focus on supercomputing. It
consists of four computer systems projects that aim to improve
techniques in grid computing, parallel I/O data accesses,
high-resolution scientific visualization and information security,
and five computer modeling projects that utilize world-class
supercomputing and visualization facilities housed at UMaine to
perform large, complex simulation experiments and data analysis in
different science domains. SuperMe provides a diversity of cutting-edge
research opportunities to students from under-represented groups or from
universities in rural areas with limited research opportunities. Through
interacting directly with the participant of existing programs at UMaine,
including ITEST, RET and GK-12, REU students disseminates their research
results and experiences to middle and high school students and teachers.

This site is co-funded by the Department of Defense in partnership
with the NSF REU Site program.